Experiences in Applied Low Temperature Plasmas: Student Travel Support to Attend the 2011 American Vacuum Society International Symposium in Nashville, TN, 10/30-11/4/2011.

1129395
Goeckner

This proposal is for partial support of student participation in the plasma science and technology fields in the 2011 American Vacuum Society International Symposium in Nashville, TN. AVS focuses on scientific and technological aspects of surface science, materials science, vacuum science with the physics and chemistry of low temperature plasmas, electric discharges and plasma chemistry, and their technological applications. Fundamental topics addressed include plasma diagnostics, ion and electron distribution functions, as well as kinetic, particle-in-cell (PIC) and fluid plasma modeling. Applications include plasma processing of materials, plasma interaction with surfaces, lasers, lighting, plasma medicine, plasma aided combustion among others.

The AVS has a strong tradition of encouraging and promoting student participation. The AVS has an enviable reputation of being the first conference that many of the leading members of the community presented their research results as graduate students. Student participation in AVS is particularly important to the professional development of young scientists and engineers.

Intellectual Merit: AVS is the leading international conference in the science and technology of applied low temperature plasmas (LTPs). The conference has been the venue of the first presentations on world leading developments in investigations of LTPs, from lighting and lasers, to plasma materials processing and plasma-medicine. The invited speakers represent the world’s leading industrial and academic scientists in LTPs. This year's conference is expected to continue the tradition of presenting on the state of the art in plasma physics and engineering.

Broader Impact: This symposium broadens the perspectives of graduate students. The broader impacts include the opportunity for young U.S. scientists to attend one of the most important international conferences in their field. They will have the opportunity to observe firsthand the scientific and cultural diversity of the field, and establish what will hopefully be career long collaborations with their international counterparts. The organizers will make a special effort to support women and underrepresented minority graduate students.